SBIR Phase II: Bioengineering Probiotic Yeast to Improve Productivity

The broader/commercial impact of this Small Business Innovation Research (SBIR) Phase II project is to advance a scalable, cost-effective solution to improve productivity. This project supports the development of a biologically based additive. Implementing this process at scale could support progress toward national and corporate goals, strengthen rural economies, and improve the global competitiveness of domestic production. The project promotes innovation within the area of biotechnology. This project also supports job creation and may support future domestic manufacturing by leveraging existing U.S. infrastructure for production. The technology developed in this project offers substantial advantages over competing solutions through its scalable manufacturing and broad efficacy across production systems. The technology platform also has potential applications for enhancing production in various manufacturing applications.